Third International Conference on Superlattices, Microstruc-tures and Microdevices

The objective of this conference is to further the understanding of the physics and technology of superlattices, microstructures, and microdevices. The conference will have open attendance and will bring together an international collection of academic and industrial researchers from a variety of disciplines.